A Highway Accident Fault-Tree Model for Design Evaluation of Vehicle Safety Features

The PIs propose to investigate the causes of highway accidents. The PIs will develop fault trees based on the databases of state and national organizations. From these data the PIs will determine causal relationships among the vehicle features, driver behavior, and accident occurrence. Finally, guidelines will be generated for vehicle design modifications based upon the driver errors identified as most frequently as being a cause of accidents. The PIs will join with the General Motors Research Laboratories on this Private Sector Research Initiative.